Enantioselective N-Heteroaryl C-H Functionalization via Dearomative Addition-Hydrogen Auto-Transfer

Professor Michael J. Krische of the University of Texas at Austin will develop catalytic methods for chemical synthesis that are safer and cheaper. Pharmaceutical and agrochemical ingredients often contain aromatic N-heterocycles bearing specialized substructures to optimize their targeted biological effects. However, current methods for the modification of aromatic N-heterocycles are costly and often exploit hazardous reagents that generate large volumes of chemical waste. This project will develop catalysts that directly convert ubiquitous but relatively inert C-H bonds of commercially available aromatic N-heterocycles to form structural motifs that appear in frequently approved pharmaceutical and agrochemical ingredients. The proposed catalytic processes align with the topic of Advanced Manufacturing, as they will enable direct conversion of inexpensive platform chemicals to value-added products in a manner that is less hazardous and more cost-effective than current protocols. The proposed research will also serve as a vehicle for the education and technical training of undergraduates and graduate students in the fields of synthetic chemistry and transition metal catalysis. In addition, Professor Krische will organize student-oriented symposia providing a range of career development experiences for all attendees.

The proposed research aims to advance a broad, new family of byproduct-free N-heteroaryl C-H functionalizations. As electron deficient aromatic N-heterocycles (azines and azoles) have low aromatic stabilization energies, they display imine-like reactivity. In this research, abundant π-unsaturated compounds (dienes, allenes, alkynes) will be evaluated for their ability to form allylruthenium nucleophiles via hydroruthenation that engage in dearomative C=N addition-beta-hydride elimination to affect N-heteroaryl C-H allylation. Preliminary studies demonstrate that catalysts derived from an inexpensive ruthenium complex and chiral chelating phosphine ligands will be effective in reactions of this type. This method exploits organometallic nucleophiles that arise as transient catalytic intermediates, bypassing the need for hazardous and costly premetalated reagents. The Krische laboratory is the only research team developing asymmetric hydrogen auto-transfer C=X (X = O, NR) additions, which are unlocking hitherto inaccessible pharmaceutical/agrochemical chemotypes.